Population Structure and the Evolution of Inbreeding Depression

Plants display a remarkable diversity of mating systems. Plant species that have mixed mating systems (e.g., both self- fertilize and outcross) provide a special opportunity for studying how natural selection molds the mating system. Some controversy surrounds this issue because different theoretical models make different predictions concerning which factors are important. The proposed research will use the common annual, Impatiens capensis, to examine whether inbreeding depression increases or decreases with a history of inbreeding in a population. Using electrophoresis, the investigator will analyze the sources of inbreeding and genetic structure in several natural populations. This information will be compared to levels of inbreeding depression and genetic load in each population derived from competition experiments. This should reveal whether the genetic load increases due to drift and mutation, or is purged via selection when inbreeding occurs. The results of this research should help determine which possible genetic effects steer mating system evolution. In addition, it should identify the sources and consequences of inbreeding in natural populations. This information will help illuminate the genetic hazards faced by the small populations of rare and threatened species and may help guide artificial selection and plant breeding in agricultural programs.